Mathematical Sciences: Rigidity and Dynamics of Manifolds of Negative Curvature

9403870 Yue The research covers several topics in dynamical systems theory and ergodicity as to applied to Riemannian manifolds of negative curvature. Rigidity questions will be pursued. The research has potential applications to chaos in dynamical systems and entropy problems in mathematical physics. ***